Ship Operations

9625588 Leinen The University of Rhode Island will operate the research vesssel ENDEAVOR in 1996 in support of a variety of oceanographic research programs for the federal agencies. The ENDEAVOR is a 184' general purpose research vessel with a schedule of 149 operational days in 1996 of which 78 days are in support of NSF-funded research. The ship will support cruises in the North Atlantic for NSF, ONR, and DOE.